Model Theory and Differential Equations

9971417
Marker
The field of logarithmic-exponential series was introduced by van
den Dries, Macintyre, and Marker to study the field of real numbers with
exponentiation. This field has a natural derivation and provides a
useful algebraic framework for asymptotic analysis. For differential
equations over the real numbers, there seems to be a strong connection
between having formal solutions in the logarithmic-exponential series
and having real non-oscillating solutions at infinity. Marker will
continue to study this connection. Marker will also work on more
general problems in the model theory of differential fields. This is
a fascinating area requiring a sophisticated mixture of ideas from
stability theory, differential algebra, and algebraic geometry. In
particular, he hopes to work on problems in differential Galois theory
and on applying geometric ideas of Hrushovski to understand the
geometric behavior of solutions of generic equations.
In recent years, tools from mathematical logic have provided new
insights into problems in classical mathematics. Model theoretic methods
have been remarkably successful in proving new results on the geometry
of solution sets to exponential algebraic equations and general
algebraic differential equations. This work has already found
applications in asymptotic analysis, control theory, micro-local
analysis, number theory and neural networks. One aspect of Marker's
work attempts to use logical and algebraic tools to understand the
asymptotic behavior of solutions to differential equations. Another
aspect is attempting to understand the geometry of the solution sets
to very general differential equations.
***